New Pathways for the Efficient Construction of Antiviral Compounds

The focus of this research is on natural product synthesis and relies on the development of biomimetic cyclizations, glycosylations and enzymatic transformations. Target molecules include the cycloviracins, phenoxan and hennoxazole, all of which have antiviral properties. The focus of the educational plan involves strategies for the recruitment of Hispanic students into the field of chemistry. With this CAREER award, the Synthetic Organic Program is supporting the research and educational plan of Dr. Michael R. Pena of the Department of Chemistry at Arizona State University. Professor Pena will focus his research efforts on the development of new synthetic pathways for the preparation of four natural products, all of which have interesting biological properties. The focus of Dr. Pena's educational plan involves strategies for the recruitment of Hispanic students into the field of chemistry.